Engineering Research Equipment Grant: Surface Profiler

This proposal request will assist in the purchase of surface profile and thin film thickness measurement equipment which costs $35,135. This equipment will be used for the accurate measurement of thin deposited films or a thin etched layer of semiconductor material and assist in the electrical and chemical characterization of silicon carbide films currently grown on silicon wafers by a CVD process, but proposed to be grown using rapid thermal annealing techniques in this laboratory. The equipment will significantly enhance the scope and quality of research at the Solid State Laboratory of the Department of Electrical Engineering, the Department of Metallurgy and the College of Engineering Surface Analysis Laboratory. It will contribute immediately to research currently being conducted, which is supported by the Semiconductor Research Corp. and NASA, and will open future new research avenues.